SBIR Phase II: Long-Life Nozzles for Abrasive-Slurry-Jet Cutting

The Small Business Innovation Research (SBIR) Phase II project will develop a high-pressure abrasive slurry jet cutting tool for almost all materials. The key aspect of this innovation is the elimination of nozzle grit erosion by fluid dynamic means. Past attempts to use abrasive slurry cutting tools have been troubled by unacceptable wear of the nozzles by the abrasive, and the associated loss of the abrasive.

The successful development of this technology will lead to a new generation of cutting equipment with reduced operating times and costs. This project will also provide internship opportunities for college undergraduates.